Collaborative: Smart Health in the AI and COVID Era

This project supports the Smart Health in AI and the COVID Era: SCH Principal Investigators Virtual Workshop on February 1-2,2021. The meeting will bring together principal investigators of projects awarded by the Smart Health (SCH) program with other researchers looking at smart health in the broader community. The SCH program was set up to bridge gaps in fundamental science necessary to transform health and biomedical research. Smart Health in AI and the COVID Era Workshop is designed to address the next generation of challenges in advancing health with foundational research from the computer science, engineering, mathematics and the social, behavioral and economic disciplines. An objective of the Workshop is to provide an opportunity for the principal investigators and other smart health researchers to explore research progress in a diverse set of projects and discuss important current issues, as well as future challenges associated with research in transdisciplinary scientific areas. The discussions will be supported by keynotes, panels, project-related posters, rapid talks and cross-discipline participant-generated workshops. It is anticipated that the meeting will stimulate discussions, connections, and collaborations that will facilitate progress in the area of Smart Health.

The workshop should have a significant impact on the participants and the future of the Smart Health program. The focus of the workshop is on foundational research that supports the growth of smart health within connected communities. The workshop results are likely to include new research directions that will be publicized to the research community through publications and a workshop website. The results dissemination should inform and the developing Smart Health research community in their transdisciplinary collaboration, educational activities, and spur other innovative research directions. The broader impacts of the workshop are to facilitate progress in the field and stimulate conversations, connections, and collaborations that will lead toward better informed and effective smart and connected health research and resulting technologies for the broadest possible user populations. In order to address current concerns in Smart Health research the meeting will include a cross-discipline mini-workshops addressing current themes, such as advancing data science, bridging new frontier in sensing hardware, data infrastructure and the sue of technology to address health disparities. Additionally, there will be a workshop attached to the Principal Investigator meeting that will support the travel for ten students to attend the PI Workshop. This should also help grow the field by providing mentorship and support for a new cadre of investigators looking to do work in the Smart Health area.